Developing the European Corn Borer into a Model Organism for Teaching

Current work with Ostrinia nubilalis, in the introductory biology laboratory courses, has resulted in successful learning experiences for students. This course enrolls large numbers of students (2,000/year) many of whom are elmentary education majors. This insect has great potential for development as a model organism. With its short life cycle (approximately 5 weeks) and ease of culture, Ostrinia nubilalis could duplicate this success in a wide range of laboratory settings. This project fully develops Ostrinia as a model animal system that can be used in investigative laboratories in beginning biology. During its development, ongoing evaluation is taking place. The work being done with Ostrinia may be presented at the Association for Biology Laboratory Education, the National Association for Research in Science Teaching, the National Science Teachers Association, and the National Association of Biology Teachers. As part of these presentations, peer feedback can be solicited. *